Global Manufacturing and Distribution Network Analysis

The management of a firm's production and operations resources on a world wide basis has become an important strategic issue for the attainment of competitive advantage. This proposal is concerned with the problem of developing models for analyzing such global manufacturing strategies. The hierarchical models to be developed involve four levels of analysis-vendors, plants, distribution centers and markets-and will incorporate variables describing market priorities, exchange rate risks, corporate taxes, tariffs and duties and production and